The Young Scholars Program

Fifteen young women and men with potential for becoming scientists will be provided with an exciting opportunity to further their understanding of the definition and practice of science. The project will instruct the participants in the principles of scientific reasoning while offering them a hands-on experience involving basic laboratory skills and techniques germane to many areas of science. All activities are designed to enhance the individual's interest in science and provide direction for selecting a field of scientific endeavor. The ongoing proposed project encompasses two major phases: a summer immersion experience and an academic-year research project. The summer immersion experience is a four week program designed to give the participant broad-based instruction and laboratory experience in several essential areas of science. This session is organized into six modules: Orientation to the Science, Chemistry, Physics,Life Sciences and Biotechnology, Ecology and Geology, and a one day Transition module. In addition to subject matter content, each of the modules will integrate such topics as scientific method, research techniques, career choices in science, and the role of ethics in science. Each module is coordinated by a university faculty who will enlist the service faculty from SUNY Plattsburgh and the Miner Research Institute. Following the immersion experience, each student will select a one semester research project under the sponsorship of faculty mentors from SUNY Plattsburgh and the Miner Research Institute. The research project will employ the skills learned during the summer immersion experience and extend the participant's interest and knowledge in a particular area of science. Written reports and oral presentations will aid in the development of scientific literacy and the articulation of scientific knowledge to others. In an effort to insure diversified participation among secondary school students in this region, the project will create a collaboration between university and secondary school science faculty.